Mathematical Sciences: Southeastern-Atlantic Regional Conference on Differential Equations

This project partially supports the Tenth Annual Southeastern-Atlantic Conference on Differential Equations to be held at the Virginia Polytechnic Institute and State University. The subject matter of the conference encompasses diverse areas in differential equations: ordinary differential equations, partial differential equations, integral and functional differential equations, applications of differential equations, and related areas such as numerical analysis and mathematical physics. Differential equations have wide applications in all areas of science. This meeting provides a forum for the exchange of the latest ideas and information. Also, the conference provides special support for graduate students and young investigators to present their own work and to meet and discuss their research with senior researchers.